An Undergraduate Laboratory Economics Curriculum

9451301 Peterson Economics courses at Furman University seek to acquaint students with the "economic way of thinking." We want majors to understand the thought processes involved in specifying an economic theory, deriving implications from that theory, and testing the theory using data from the real world. We hope that by the end of their undergraduate education they will be able to view theoretical arguments critically and begin to generate and test some simple theories of their own. We want our students (majors and non-majors) to know why economic thinking is important and to appreciate the dynamic relationship between economic behavior and economic institutions. Historically, lecture and textbook assignments, supplemented with data and anecdotes from journals, magazines, and newspapers, have been the principal classroom tools. Recent technological developments have facilitated the use of a more "active" set of teaching tools in economics which include data viewing, transformation, and analysis; model creation, comparative statics, and sensitivity analysis; and macro- and microeconomic simulations. A computer laboratory with twenty-six workstations and software for data analysis, mathematical modeling, and economic simulations will be used to implement the full range of these active-learning techniques. When combined with the appropriate laboratory exercises in the principles, theory, econometrics, and topics courses, the laboratory will help our students develop "the economic way of thinking" and it will enable us to achieve our curricular goals.